Mathematical Sciences: Differential Geometry

9404601 Gromoll The research involves studies into the structure and parametrization of submanifolds of certain classes of differentiable manifolds. Rigidity problems will be undertaken in view of curvature properties. The geometry of metric fibrations will also be considered. This research has potential important applications to other branches of differential geometry and mathematical physics. Submanifold geometry has found recent applications to soliton theory. ***